High Signal-to-Noise CCD Spectroscopy of Interstellar Absorption Lines

9315728 Meyer Dr. Meyer will utilize the latest generation of charge-coupled-devices (CCDs) at the NSF supported National Optical Astronomy Observatories to push the sensitivity of interstellar absorption line studies. The principal goals in this research are to: (1) measure an isotope ratio of lithium in several interstellar clouds and determine if there is a global value for the solar neighborhood; (2) obtain a better understanding of the apparent NH overabundance in diffuse clouds; and (3) investigate the possibility that metal-bearing high velocity clouds of low column density could be common throughout the halo of our Galaxy. The techniques being developed will be applicable to future studies involving quasar absorption lines and the large ground-based telescopes coming on line this decade.